Tools and techniques for automated mechanism design

Auctions are becoming increasingly common, both in the award of government
contracts and in commercial transactions. Traditionally, game theory has
been used by economists to design auction mechanisms, but, for various
reasons, these undoubtedly powerful analytic methods are not always
successful or appropriate. In contrast, this project is exploring
computational approaches to auction design.

The project focusses on two computational approaches. One of these is a
co-evolutionary approach, in which mechanisms and participant trading
strategies evolve together over time. The other uses reinforcement
learning to set trading strategies and then searches for the best mechanism
given these strategies. The project aims to develop these specific
techniques along with software tools to support them, towards a point at
which they can assist those who design auctions in the same way that
computer-aided design (CAD) packages help mechanical engineers and
architects.